III: Small: Collaborative Research: Demystifying Deep Learning on Graphs: From Basic Operations to Applications

Graphs are ubiquitous in myriad high-impact domains, e.g., social media platforms, collaboration networks, biological networks, and critical infrastructure systems. Recent years have witnessed a surge of research interests in developing deep learning algorithms (in particular graph convolution networks - GCNs) for graph data. By stacking multiple layers of neural network primitives, GCNs learn high-level feature representations and address graph-related applications in an end-to-end manner, achieving superior performance in various learning tasks. In particular, the graph convolution and graph pooling operations are considered as fundamental building blocks of GCNs. However, a vast majority of existing graph convolution and graph pooling operations are simple extensions of the corresponding operations from convolution neural networks. Therefore, they are insufficient to tackle the fundamental challenges brought by real-world graphs and advance high-impact graph mining applications. The primary goal of this project is to develop novel operations to improve the essential building blocks of deep learning algorithms for graphs, propelling the state-of-the-art graph mining and deep learning research to a new frontier and advancing graph-related applications from different disciplines.

This project proposes a class of novel graph convolution and pooling operations that can faithfully characterize the properties of real-world graphs from different perspectives, and build more tailored and powerful deep architectures in handling high-impact graph applications from different domains. First, it develops a family of trainable graph convolution operations that can integrate properties of real-world graphs from different aspects at the feature-level, edge-level, and node-level. Second, it investigates the problem of graph pooling to support graph-level analytical tasks and develops novel topology-aware graph pooling operations based on node sampling and node clustering. Third, it assesses the impact of proposed graph convolution and graph pooling operations by building more powerful and customized deep learning architectures for various common graph applications, such as graph anomaly detection and graph alignment. This project will be tightly integrated with newly developed undergraduate and graduate courses. The results and findings of this project will be disseminated through public datasets, open-source software repositories, journal and conference publications, special-purpose workshops or tutorials, as well as education and outreach activities.